CAREER: Large-Scale Semidefinite Programming

Nayakkankuppam
This project, which lies at the interface of optimization
theory, numerical analysis and parallel scientific computing,
focuses on the design, analysis and implementation of novel
algorithms for large-scale semidefinite programming. A growing
number of applications (for example, structural design,
communication networks, combinatorial optimization, quantum
chemistry, VLSI design) give rise to very large-scale problems
well beyond the capabilities of the interior-point algorithms
currently in use. The investigator studies (a) quasi-Newton
techniques in first and second order subgradient bundle methods,
and (b) parallel variable distribution in interior-point and
subgradient bundle methods. The goals of the project are
three-fold: (i) to develop convergence theories for these new
classes of algorithms, (ii) to develop fast, reliable and
parallel software implementations, and (iii) to apply these
algorithms and codes to specific problems in quantum chemistry
and numerical linear algebra. The educational plan, integrated
with the research goals of the project, includes (i) the
development of new graduate curricula in parallel computing,
numerical optimization and convex programming designed to train
graduate students to participate in, and contribute to, the
research program; (ii) a revision of undergraduate curricula in
linear and nonlinear programming to include significant modeling
and computational components.
Due to the wide-ranging applicability of semidefinite
programming, the tools and techniques developed in this project
can directly benefit society by providing improved,
cost-effective solutions to a variety of engineering design
problems. The specific problems targeted in numerical linear
algebra are relevant to aerospace applications, while the
problems in quantum chemistry are of a fundamental nature with
potential technological impact in, for example, semiconductor
design, magnetic storage media, rational drug design, etc. The
outreach activities of the project promote synergistic
collaborations with a national lab and industry. The educational
plan enriches special UMBC programs targeted at educating
minorities and historically underrepresented groups.